Invariant Manifolds and Complex Behavior in Nonlinear Physical Systems

In nonlinear evolutionary problems of physics, one is typically concerned
with the analysis of observable dynamical behavior, which impacts large
classes of initial states. Dynamical systems theory offers a powerful
geometric tool, invariant manifolds, to tackle such problems. Invariant
manifolds are capable of acting as organizing structures in the phase space
of a system, as well as creating complex or chaotic behavior for sizable
sets of initial conditions. Examples of these phenomena include chaotic
mixing, fast energy transfer, and diffusion in finite dimensional systems,
and jumping behavior and pulse generation in evolution equations. This
proposal suggests novel extensions and new applications of invariant
manifold theory in an array of areas, ranging from difficult open questions
of applied analysis to concrete problems in laser optics, oceanography,
and atmospheric science.

Most phenomena in nature are dynamic in nature, i.e., one observes them
change in time. Such phenomena include ocean currents, atmospheric
events, and the motion of planets. The mathematical discipline that deals
with the description of these time-varying phenomena is called dynamical
systems theory. The main concern of this theory is to understand the
evolution of the studied phenomenon in terms of mathematical formulas
and predict its future for long times. This theory has already showed its
power in several applications, but has not been mature enough to deal with
large-scale physical processes. This proposal suggests the development of
several new tools in order to make dynamical systems theory applicable to
highly important problems of laser optics, oceanography and atmospheric
science. For example, one of the suggested directions of research is aimed
at the analysis and prediction of the motion of large eddies in the ocean.
Another aspect of the proposed work will provide scientifically solid
estimates for the rate of ozone depletion near the Antarctic polar vortex.